Efficient Algorithms for Large Scale Convex Programming

The goal of this project is to analyze and develop algorithms for large scale
convex programming problems. The principal investigator will extend the scope
of interior point methods by developing invariant, primal and dual interior point
methods over homogeneous cones, which form a large class of problems including
linear programming, semidefinite programming, and second order cone programming.
Homogeneous cones have rich symmetry properties and a classification theory, which
make them an ideal candidate for extending the theory of structured interior point
methods beyond semidefinite programming. The investigation of the modeling power
of homogeneous cone programming will be an important part of the project, and
several related topics in semidefinite programming and hyperbolic cone programming
will also be investigated. A second, but related component of this project will be
the development of provably efficient first order methods for large scale convex
programming. These methods have low memory requirements and global convergence rates
which are (nearly) independent of the dimension of the underlying optimization problem.
Hence, they are attractive for solving very large scale problems for which interior
point methods may be ineffective because of their extensive memory requirements.
The principal investigator and his graduate students will seek answers to these and
related problems in convex programming. The resulting algorithms will be numerically
tested in order to confirm their effectiveness.

Numerous problems from industry, engineering, and science (designs of VLSI, antenna
arrays, truss structures, and control systems in engineering, portfolio analysis in
finance, structure of molecules in quantum chemistry, combinatorial optimization,
and many others) depend on efficient optimization algorithms for their resolution.
Semidefinite programming (SDP) has proved to be an excellent framework in which to
model most of these large scale problems, and interior point methods for SDP have
been very successful in solving them numerically. Very large scale problems arising
from medical imaging and quantum chemistry provide good incentives for developing
first order methods for convex programming. The theoretical insights gained from
this research will lead to a deeper understanding of interior point methods for
semidefinite programming and beyond. These insights will enable the principal
investigator, his students, and other researchers to develop faster, more reliable
algorithms which will make it possible to model and solve larger problems. These
advances will directly benefit researchers in diverse scientific fields, who rely
on modern optimization techniques to solve their problems, by providing them with a
set of state of the art algorithms. The research of this project will help advance
the frontiers of scientific research in convex programming, and will be incorporated
into undergraduate and graduate teaching whenever possible.